Acquisition of Equipment for Integrated Sensing Towards Real-Time Vision, Cognition & 3-D Modeling

9512454 Adjouadi This proposal requests a confocal microscope, a high-speed video motion analyzer, and two dedicated processors which will complement the existing Onyx multiprocessing supercomputer with four R8000 RISC processors. The integrated equipment will bring new research dimension in real-time vision, cognition, and 3-D modeling with real-world applications. Research collaboration has been established with Coulter Corporation in analysis and classification of blood cells, with Baptist Hospital of Miami in surgical planning and nuclear medicine, and with the University of Florida's Center for Intelligent Machines in robot vision, motion analysis, and telerobotics. New visual/sensing techniques will be developed and used in these projects for high sensitivity and resolution, real-time motion analysis, real-time 3-D rendering and visualization, and on-chip 3-D surface reconstruction and depth extraction. ***